Cell Fractionation: Introduction of Research Techniques intothe Biology Curriculum

Trinity University provides many opportunities for undergraduates to become involved with faculty research projects. They are encouraging students to take advantage of these opportunities to learn research by modifying laboratory exercises in a manner that will increase the students' familiarity with modern research instruments and techniques. They are purchasing a high speed centrifuge and ultracentrifuge for cell fractionation procedures, and two UV-vis spectrophotometers and a scanning spectrofluorimeter for fraction analysis. These instruments are being used to upgrade laboratory courses in cellular and molecular biology, including a sophomore level cell and molecular course, and advanced courses in developmemtal biology, endocrinology and plant physiology. The centrifuges are being used for cell fractionation experiments and competitive binding assays such as immunoassay. The UV-vis spectrophotometers are being used for marker enzyme assays, protein and DNA measurement. The spectrofluorimeter is being used to introduce students to recently developed techniques using targeted fluorescence probes. The incorporation of such procedures into the curriculum should enhance the students' competence to enter graduate programs and careers in biological research. The university is contributing an amount equal to the award.